Origins of Atmospheric Dust in GISP2 Core Ice

Investigators will continue a project of extracting dust samples from the Greenland Ice Sheet Project 2 ice core. The origin of the dust will be determined by comparing the geochemistry of the dust from the ice core to that of samples taken from potential continental sources worldwide. Changes in the source area for the dust in the ice cores will reveal how continental weathering and atmospheric transport have changed in response to changing climate during the past 100,000 years. Changes in atmospheric transport patterns will provide data for testing climate models that predict changes in atmospheric conditions during climate events during both glacial and interglacial climate extremes. .